RIA: Memory Architectures for Parallel Processing

The primary objective of this investigation is to improve the performance of computer architectures used for scientific and engineering computation. More specifically, characteristics of scientific applications combined, with trends in integrated circuit technology indicate that memory system performance will soon be, if it is not already, the processing bottleneck in these architectures. The research focuses on issues related to the improvement of memory system performance. The first phase of the investigation studies characteristics of data access in scientific codes. An understanding of vector and array usage in applications is a prerequisite to designing efficient memory structures. The second part of the investigation considers the benefits of uncovering the memory architecture to system software. In particular, the recent work proposing the use of dynamic storage schemes in main memory will be expanded upon. This technique of using compile time and run time generated knowledge of program behavior to dynamically optimize the memory architecture will be considered experimentally, using simulation, and theoretically. Emphasis is placed on the use of storage schemes to reduce contention for shared memory modules and the processor-memory interconnection network. Concurrently, a set of tools to provide interactive animation and simulation of main memory architectures will be developed.